CRI: DEter Cyber Community of Researchers

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: DEter Cyber Community of Researchers
Proposal: CNS 0454381
PI: B. Clifford Neuman
Institution: University of Southern California

This project will expand the DEter testbed to enable improving its usefulness for science research, conducting larger experiments, and expanding the research and education community that can access it. DEter is a shared laboratory for researchers from academia, government and industry to experiment with cyber security technologies under realistic conditions. The testbed provides tools and resources that enable repeatable experiments and comparisons of approaches. DEter has strong security, contained experiments and usage policies for its use in research on computer network attack and defense mechanisms. Broader impacts of the project include improvements in cybersecurity for computing and critical infrastructure. Educational impacts will also follow from the use of DEter in hands-on projects at colleges and universities.